Towards a Global Plasma Etching Reactor Model

A joint theoretical and experimental study will explore the etching potential of a plasma reactor. The study will focus on ion transport in the context of an active chemical medium. Advanced diagnostics (Langmuir probes, emission spectroscopy) will map concentration profiles and allow for an accurate knowledge of non-symmetrical situations. Chlorinated gases and silicon surfaces have been chosen as an example. Such an approach should help understand the fine points of the etching process. Ultimately it will help decide on the optimum etching process when the required accuracy approaches the molecular level.